Mathematical Sciences Research Equipment

This is an equipment request submitted under the activity Grants For Scientific Computing Research Equipment For The Mathematical Sciences program. The project involves the purchase of special purpose scientific equipment dedicated to the support of research in the mathematical sciences. This equipment is required jointly by several research projects and would be difficult to justify on one project alone. National Science Foundation research equipment support is coupled with discounts and contributions of equipment from manufacturers and significant cost-sharing from the submitting institution. This project provides an example of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The equipment will support research on several projects, including: (1) Applications for numerical techniques to nonlinear mechanics. (2) Symbolic dynamics and cellular automata. (3) Deformation spaces and discrete groups and their topology. (4) Symbolic computation in differential geometry. (5) Computer simulations in partial differential equations.